Mathematical Sciences: Spectral Asymptotics of Toeplitz andPseudodifferential Operators

A continuation of earlier work on the spectral asymptotics of pseudodifferential operators and related questions on Toeplitz operators will be carried out. Recent expansions associated with pseudodifferential operators obtained in a formal sense have been shown, in certain cases, to be correct asymptotically. In effect, one is trying to gain information about the trace of functions of an operator in terms of some universal approximation which takes the form of an integral of the function with respect to a measure. This was the basis for the pioneering work of Weyl and Szego in the earlier part of the century on classical operators. Present theory has produced a Szego expansion for operators with a smooth symbol. The object of the current study is to develop expansions for operators with nonsmooth symbols. Such operators are not mathematical artifacts; they arise in several areas of applied mathematics. The approach to this question will be based on a method of stationary phase for integrals with nonsmooth amplitude function. Work will also be done in seeking a generalization to the n-sphere of Szego's refined limit theorem on Toeplitz determinants. Toeplitz matrices enter into these studies naturally as one-dimensional discrete analogues of pseudodifferential operators, where the multiplier is discontinuous. A crucial inequality in the one-dimensional theory would have important implications to harmonic analysis in higher dimensions if the correct analogue can be established. Work will be done towards this end. Additional work will be done in an effort to establish a functional calculus to support the study of nonselfadjoint Toeplitz operators, with emphasis placed on learning how the spectra distribute when the multipliers change.